Direct 3D Imaging of Molecular Structure: Quantum Sensing and Control

0097544
Garbini

One of the oldest and most enduring dreams of the scientific community
is to directly observe molecular structure nondestructively, in situ, in
three dimensions, with Angstrom-scale resolution. Such an imaging
technology would immediately address urgent needs in nanoscale
engineering, materials science, molecular biology, and medicine. The
objective of the proposed research is to create such a technology.

The proposed method is magnetic resonance force microscopy MRFM, which
was conceived in 1991, by the proposers specifically as a means for 3D
molecular imaging. The central concept of MRFM is to combine
three-dimensional magnetic resonance imaging with angstrom-scale probe
microscopy. MRFM was first experimentally demonstrated in 1992 in
collaboration with Dan Rugar's IBM group. Subsequently, MRFM has
developed into a worldwide sensing and imaging research effort.

The specific aims of this NSF proposal are to: (1) demonstrate
nanoscale resolution in 3D MRFM imaging; (2) achieve a reliable,
experimentally validated understanding of electron and proton spin
relaxation in the MRFM environment; and (3) extend present design
principles for optimal control and estimation to the quantum environment
appropriate to single spin imaging.

The proposed means are to: (1) validate and calibrate the proposers'
newly completed 3D MRFM scanner, via force, parametric, and multiplex
imaging experiments; (2) design and operate a next-generation adaptive
digital controller, incorporating optimal control, estimation, and
diagnostic algorithms; and (3) survey electron and proton spin
relaxation in a variety of target samples.

The proposed opening of a new imaging window onto the largely unobserved
world of 3D molecular structure will revolutionize the fields of
nanoscale engineering, materials science, biology, medicine, and
engineering education.